Dynamics and Structure of Ionic Solutions and Polar Fluids

Jayendran Rasaiah of the Chemistry Department of the University of Maine at Orono is funded jointly by the Physical Chemistry Program of the Chemistry Division and the Office of Experimental Programs to Stimulate Competitive Research, to study the dynamics and structure of ionic solutions and polar fluids. In this research the mobility of ions in solution will be investigated by molecular dynamics, the phase transitions in polar fluids by Gibbs ensemble simulations, the dynamics of the electric double layer by integral equations, and the theory of bolaform electrolytes using integral equations. This research should produce new insights in the understanding of transport and equilibrium properties of electrolytes in systems of biological and technological relevance.